Diamond Film Generation from a Combustion Jet

This project is aimed at development of a method for combustion- flame production of diamond films; this method has the potential for deposition of large area films on complex shapes. In this work, flames will be supported in a combustion chamber wivh subsequent expansion of the product flame gases through a converging-diverging nozzle to form a supersonic jet which will be directed against a substrate for deposition of the desired films. This approach has the potential to mitigate previous problems associated with diamond-film deposition such as poor uniformity and high levels of grain impurities via control of the chemical reactions and transport phenomena, thus leading to efficient and uniform utilization of the combustion-generated active species in production of high-quality diamond films. The basic principles involved in this approach are: isolate the active portion of the fuel-rich combustion product cloud (which contains high levels of species which lead to diamond deposition); freeze the chemistry in that cloud through the rapid nozzle expansion process; transport this "frozen" stream rapidly to the surface to be coated; modify the uniformity/composition/temperature in an optimum fashion in transit; and establish a thin, uniform boundary layer at the substrate surface across which the active species can diffuse to strike the growing diamond film. The proposed method for applying combustion-generated diamond films will significantly impact a potential billion dollar market. When perfected, this new technique will provide a practical, portable, low-cost method of applying diamond coatings to materials as diverse as machine tools and electronic parts.